Fast Integral Equation Methods for High-Dimensional Diffusion Problems

The unifying theme of this project is the development and analysis of
numerical methods for high-dimensional diffusion problems. In
particular, the research will be focused in two areas, namely solving
boundary value problems to the heat equation in three dimensions using
thermal layer potentials. The second issue is the computation of the
discrete Gauss transform for data sets in many dimensions. Both
topics involve computations with integral operators that have a Gauss
kernel. Since these operators are non-local, naive algorithms scale
quadratically in the number of data points. Realistic problems can
involve enormous data sets and are therefore tractable only if fast
methods, that exploit certain analytic properties of the kernel, are
applied. This project will employ high-order Nystrom techniques that
are combined with Chebyshev and exponential expansions for the rapid
evaluation of integral operators.

The ability to solve the heat equation efficiently is fundamental in
many applications of science, technology and medicine. For instance,
heat conduction plays an important role in the modeling of geothermal
systems, melting, welding, and in thermography as a means to detect
breast cancer. Often, the task is to identify an unknown heat source
from known surface temperatures and fluxes. The solution of such
inverse problems involves solving the forward problem many times,
therefore speed is essential for numerical methods. The discrete
Gauss transform is used to find relations in large data sets. This can
be patterns, correlations, or accumulations in images, texts, or
internet traffic. Concrete applications are, for instance, machine
recognition of faces, voices and handwriting. By engaging a graduate
as well as undergraduate students in research, the proposed activities
will also contribute to excellence and growth in the education of the
future workforce.